CNS Mediation of Conditioned Bradycardia

Why are events with emotional significance remembered with particular intensity? Current evidence suggests that the autonomic activity that accompanies emotional experiences in a way that facilitates later recall. A popular paradigm for investigating this phenomenon is the conditioned heart rate deceleration that occurs to a stimulus that has become frightening because of previous association with pain or suffering. With this NSF award, Dr. McCabe will investigate the changes that occur in neuronal firing as stimuli change meaning from neutral to frightening and then as they lose their significance through desensitization. He will use sophisticated neurophysiological techniques to record from single neurons in two brain areas simultaneously. The information he gains from studying changes in the firing patterns in these two areas will identify the steps involved in the neuronal coding of emotional meaning. This kind of information is crucial for the development of therapies designed to reverse the effects of early emotional trauma and also to control the abnormal autonomic reactivity that occurs in many cardiovascular diseases. It will also prove important for the design of neural nets for information processing, storage and retrieval.***//